Summer Marine Education and Research Program for Young Scholars

The Summer Marine Education and Research Program for Young Scholars sponsored by The Graduate School of Oceanography of the University of Rhode Island is a three week summer commuter project for llth and l2th grade Rhode Island students. Students, who are high achievers, interested in marine-related post secondary education and careers will interact with scientists and participate in a variety of research projects. They will develop skills necessary for scientific research and will be confronted with marine environmental issues.